Mass Transport of Hazardous Wastes Through Geosyn Materials

Geosynthetic materials, such as geomembranes, geotextiles and geonets have been extensively used for hazardous waste containment for the last ten years. One problem facing the advancement of modern geosynthetic technology is the lack of consistent testing methods. The objectives of this research are to develop a technical method to evaluate long-term chemical compatibility and durability; study chemical structure-mass transport relationships; evaluate compatibility, durability and permeation potential; investigate effects of mechanical stress and pressure on the mass transport of hazardous wastes through geomembranes; and develop a mathematical model to predict the mass flux of organic chemicals through geomembranes.